Engineering Research Equipment: Acquisition of an X-ray Photoelectron Spectroscopy Research Instrument

The PI proposes purchasing a Perkin-Elmer X-ray Photoelectron Spectroscopy (XPS) research system. The instrument consists of a vacuum chamber with an attached pumping system that incorporates ion, turbomolecular, and titanium sublimation pumping to achieve pressures in the 10-10 torr range. Soft x-rays irradiate a specimen in the vacuum chamber, and the incident energy of the rays ejects electrons. If the x-rays only graze the surface, then the radiation is adsorbed by surface molecules. The energy of the emitted electrons is characteristic of the element emitting the radiation, and the bonds the element shares with neighboring atoms. The PI will use the instrument in his studies on the relationships between interfacial microstructure in a composite material and material performance. In particular, the PI has been investigating the synthesis of novel, filamentary composite materials which incorporate elastomers to chemically bond carbon fibers to a polymer matrix. Fibers are activated via radio frequency plasmas to introduce a high density of specific types of functional groups on the fiber surface. Carbon and Kevlar fibers are functionalized with OH and -COOH functions with O2 and O2/H2O plasmas, and with -NH2 functions using ammonia. Di-end functionalized elastomeric polymers are then used to join these functionalized groups to an epoxy resin. The goal of this fabrication is to produce a composite with improved damage tolerance due to the strong attachment of the fiber to the resin. The XPS research system will be used to characterize the fiber surface before plasma treatment, after functionalization and finally after chemical binding. XPS is an ideally suited technique for this chacterization because the grazing angle of the incident radiation can be adjusted so that the penetration or sampling depth is of the order of 50-100 A, small enough to insure that the emitted electrons characterize surface elements.